Calculus Institute Using Computer Algebra Systems

The Calculus Institute is introducing college mathematics teachers to computer algebra systems and to new methods of teaching calculus using computer algebra systems. This cooperative venture by two-year and four-year institutions, the American Mathematical Association of Two-Year Colleges (AMATYC), and the Kentucky Mathematical Association of Two-Year Colleges (KYMATYC) is focusing on calculus reform efforts in Kentucky. Laboratory manuals of participants' calculus materials and a position paper on transferability will be presented to AMATYC and KYMATYC for dissemination.